Symbiosis in dormancy: elucidating yeast contributions to lipid economy in diapausing solitary bees

Many insects including pests and beneficial insects associate with bacteria or fungi, yet how these microbes contribute to insect survival remains poorly understood. Bees are an important group of insects and are essential for food and energy security in the United States. Bee pollinators affect pollination of crops including canola, underlying advances in industrial biotechnology. In addition, putative bee symbionts play key roles in the biotransformation of potential biofuels. Understanding fungal biochemistry and effects in natural ecological systems will advance understanding of how environmental microbes can contribute to industrial biotechnology. This project will examine how yeasts affect bee lipids during seasonal dormancy. This project will also provide educational videos, in-person events focused on solitary bee biology, training future STEM workforce and inform insect management efforts.

Insect-microbe symbioses are important drivers of evolutionary diversification and ecological success, yet the metabolic contributions of many microbial partners remain unknown. Bee species are increasingly recognized to host fungal symbionts during larval development, including yeasts in the genus Moniliella. Like many insects, solitary bees utilize diapause, a life history strategy of preprogrammed developmental arrest and metabolic depression in seasonally unfavorable environments. Moniliella yeasts associate with bees specifically during diapause in at least two distinct bee lineages, suggesting a convergent functional symbiosis during bee development. This project will leverage two unrelated bee hosts (Anthophora bomboides and Megachile rotundata) through an integrative research program that includes the following aims. First, we will assess the capacity of Moniliella yeasts to modify bee-associated fatty acid and sterol profiles in-vitro and compare with in-vivo developmental changes in bee-associated lipids. Second, we will characterize the spatial and temporal dynamics of host-symbiont interaction in both bee species using Fluorescent In-Situ Hybridization to locate yeasts within the bee host upon entry into and progression through diapause. Next, we will determine yeast functions through bee development in two bee species using transcriptomics. It will identify the specific yeast pathways and enzymes responsible for lipid modification and/or synthesis and when they are expressed in-vivo using a developmental timeseries to test the hypothesis that yeasts mediate lipid synthesis and/or desaturation. Finally, we will quantify fitness benefit and specificity through manipulation of yeast symbionts using the tractable model leafcutter bee M. rotundata.